Health Monitoring of Long Span Bridges

Proposal #: CMS-0004361
PI: Darryll Pines
Institution: University of Maryland

ABSTRACT:
A workshop focused on health monitoring of long span bridges is to be held in conjunction with the 2001 joint 8th annual Smart Structures and Materials Conference and the 6th annual Nondestructive Evaluation (NDE) for Health Monitoring and Diagnostics Conference. Workshop topics include discussion of large/long-span bridge systems including financial, environmental, design, construction, and jurisdiction issues and current operational and maintenance practices. Research and development needs to be discussed include new and emerging technologies in NDE, smart materials and structures, intelligent transportation systems and health monitoring. Focused discussions will be held on the Woodrow Wilson Bridge Technology Demonstration Project. In particular, the workshop will permit formation of a cross-disciplinary expert panel to address critical issues associated with this opportunity for the development, integration and operation of civil infrastructure systems health monitoring in conjunction with this major transportation test-bed.